Molecular Genetic Studies of Neurogenesis in Drosophila

The Notch cell communication pathway involves cell surface ligands, their
receptor, and a group of cytoplasmic and nuclear proteins that transduce
signals from the cell surface to the nucleus. The pathway is an essential
regulator of neurogenesis and multiple other processes in Drosophila and
elsewhere.

The Drosophila mastermind (mam) gene encodes an essential
component of the Notch pathway. The Mam protein is nuclear and very
likely functions in gene regulation. However, attempts to demonstrate
specific DNA binding activity in vitro by Mam have been unsuccessful. To
better understand its function, current studies are directed at screening for
loci that may encode a component of a transcription complex with Mam,
and positioning Mam's role within the pathway. Overexpression of
engineered mutant versions of Mam in transgenic lines elicits an array of
dominant phenotypes. These phenotypes have been utilized in deficiency
screens for modifiers, and a number of genomic regions that enhance or
suppress have been identified. The Mam mutations have also been used
in epistasis experiments to position Mam function provisionally upstream
of Delta-Notch signaling. Such positioning has led to a new hypothesis
that Mam acts as a positive regulator of Delta transcription. If this
hypothesis is correct, Mam may play a key role in the activation of the
Notch pathway, and a full characterization of its function should provide
substantial insight into the regulation of this important signaling system.

To further characterize Mam three objectives are proposed: 1: Continue
an analysis of the effects of Mam truncations on embryonic neurogenesis
and selected imaginal disc tissues; 2: Complete the screening of the
genome for genetic modifiers and begin to identify potential loci that
mediate the effects, and, 3: Initiate cell culture transfection assays to test
for direct effects of Mam on Delta gene promotor activity.